Proposal to Create a History of Global Change Information Server (HGCIS)

9312318 Williamson This project funds the creation of an electronic information management and dissemination server, the History of Global Change Information Server (HGCIS), for the use of economic historians studying global change. The server will evolve into a primary communications channel between researchers of the economic history of global change and into a repository of critical knowledge, technical details, and general subject matter expertise on the economic history of global change. The HGCIS's goals are: 1) to provide an international forum for global change researchers to exchange ideas, opinions, and data; 2) to develop on-line global change databases with search capabilities and accessibility to all researchers; 3) to maintain an on-line library of papers, proceedings, and electronic meetings. To achieve these goals, the proposed global change network server will assemble a membership registry database, bulletin boards, electronic conference rooms, research rooms, global change databases, and electronic libraries.